Undergraduate Experiments in Bioremediation Utilizing Microorganisms and Plants

9451148 Glick This project is establishing a laboratory in the area of bioremediation. Bioremediation involves the use of living organisms to reduce the concentration of environmental pollutants in contaminated soils and wetlands. It is also a relatively new field which presents excellent opportunities to impart new concepts and laboratory techniques to undergraduate students. A series of experiments is being developed, beginning with site assessment and concluding with the study of the most efficient conditions under which bioremediation occurs. Students are introduced to new concepts in both biology and chemistry courses. The project also departs from traditional teaching in that it illustrates the usefulness of microbes and their potential for rehabilitating the environment. New areas of exploration provide learning opportunities for undergraduates, and students will gain practical experience in lab techniques using equipment which may not have been available.